Postdoctoral Research Fellowship in Biological Informatics for FY-2000

This action funds an NSF Postdoctoral Research Fellowship in Biological Informatics for 2000.

The research and training plan is in the area of Ecology and is entitled "Development of a Biogeographical Information System for Seamounts". Seamounts, which are volcanic peaks found within the ocean and rise 1000 feet above the ocean floor (yet not breaking the surface), exist in a variety of locations and latitudes, and may be highly representative of several aspects of biodiversity. This project creates an oceanographic information system by aggregating global biogeographic data from seamounts into a database/GIS system which is used to map and explain patterns of seamount biodiversity, and will be freely accessible over the internet to aid research, management, and education.